Essentially Non-Oscillatory Numberical Methods For Devices Simulations

Shu 9214488 The objective of this proposed research is to develop accurate and stable algorithms, based on the essentially non-oscillatory (ENO) methodology, which were originally designed for general hyperbolic conservation laws and in particular for the compressible Euler equations in gas dynamics, to device simulations in two and eventually in three space dimensions. The emphasis will be on simulating the hydrodynamioc (HD) model and the recently developed Energy-Transport (ET) model and investigating their physical applications. Issues related to device simulations, such as the choice of boundary conditions based upon physical as well as numerical considerations, the adequate handling of boundary and inner layers (high gradient regions), the adequate handling of mild singularities in the potential due to the boundary conditions, the adequate handling of possibly stiff source terms, and parallel implementation of the algorithm will be investigated. The eventual goal of the effort is to develop a numerical algorithm which is accurate and robust, suitable for device simulations using not only the HD and ET models but also other models as well. Physical applications of related models will also be investigated in collaboration with other applied mathematicians, device physicists and engineers. ***